Mathematical Sciences: Variational Problems in Geometry and Topology

9404278 Kusner Topics covered in the research include the geometry of area minimizing and mean curvature surfaces from a variational viewpoint, knot theory and the energy of knots in 3 and 4 dimensional manifolds. The research has potential applications to elastodynamics and fluid membranes in surface physics and surface interfacing in materials theory. ***